Ph.D. Training Program in Coastal Ocean Processes

The University of California, Santa Barbara (UCSB) is ideally suited for an integrative and multidisciplinary graduate training program in coastal ocean processes. Ten faculty including 4 physical/optical oceanographers, 4 biological oceanographers and 2 chemical/paleooceanographers who already have an established record of productive collaboration are seeking support for 5 graduate traineeships. A sixth student will be supported by matching funds from the University. The training program will emphasize two highly interdisciplinary areas crucial to our understanding of the coastal ocean made possible by UCSB's unique location and research expertise; 1) bio-optics, photoadaptation, and remote sensing of coastal primary production and water column optical properties (5 faculty) and 2) spatial and temporal variability in coastal hydrography and water column processes and their impact on the long-term climate record deposited in the sediments (8 faculty). Students will be co-sponsored by two faculty to foster interdisciplinary thesis projects and will received training in state-of-the-art technologies including satellite imaging and remote sensing, ocean mooring instrumentation, bio-optics, computer modeling, and modern isotope geochemical, microbiological and chemical techniques. Recruitment of women and minority students will be facilitated by liaisons with 2 feeder institutions, (Moss Landing Marine Lab, California State University at Long Beach) and by the availability of 3 women mentors among the participating faculty.